Postdoctoral Fellowship: MSPRF: Interplay between Ergodic Theory and Number Theory

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Kaitlyn Loyd is “Interplay between Ergodic Theory and Number Theory”. The host institution for the fellowship is the University of Maryland and the sponsoring scientist is Adam Kanigowski.